CAREER: Design and Control of Wireless Networks on Network-Information-Theoretic Foundations

Network resource allocation deals with efficiently managing the
scarce resources available with the objective of providing us
with practical algorithms to achieve high performance in
wireless networks. On the other hand, network information
theory develops conceptual tools to build new mechanisms to
exploit the full capacity of wireless networks. Currently there
is a significant gap between the information theoretic
capacities of wireless networks and the performances achieved
by existing resource allocation schemes.

This project aims to bridge these two separate perspectives to close
this performance gap. To that end, it develops practical network
algorithms over an underlying infrastructure of multiuser channels
along with the appropriate information theoretic mechanisms. To achieve
this task, it proceeds along the following main research thrusts: (1)
network design, which involves the optimal construction and dynamic
update of multiuser channels; (2) network control, based on joint
optimization of physical and the network layers and the development of
the necessary stochastic optimization tools; (3) design of
low-complexity multiuser channel schedulers with a near-optimal
performance; (4) performance evaluation of the developed algorithms
through real link-level measurements.

The outcome of the research has the potential to give us performance
gains by more than an order of magnitude, which will enable the design
and implementation of faster, more reliable, and more robust wireless
networks operating under a variety of conditions. Dissemination of the
research will be achieved by submitting the results for publication in
refereed scholarly journals, presentation in conferences and symposia,
and lectures and workshops in academic and industrial settings.